Complex methods in reconstructive integral geometry

Many technologies reveal the interior of an object without physically opening it, such as X-ray Computerized Tomography scanners in hospitals, seismic imaging methods used to study the Earth's interior, and non-destructive techniques for inspecting manufactured materials. These technologies rely on solving the same underlying mathematical challenge: recovering an unknown internal property from a collection of measurements taken along lines or curves through the object. In this project, new mathematical tools drawn from complex analysis and geometry will be developed to solve this class of reconstruction problems with greater precision, including in settings where the material being imaged is non-uniform, such as biological tissue, rock, or optical media with a varying index of refraction. This work aims to strengthen the mathematical foundations underlying medical imaging technologies relevant to public health, advance methods used in geophysical and seismic imaging relevant to natural-resource management, and support the training of undergraduate, graduate, and postdoctoral researchers in the mathematical techniques that connect rigorous theory to practical, computational tools. Publicly available lecture notes and numerical illustrations will also be developed and disseminated, making advanced techniques in this area widely accessible to students and researchers in the field.

Two interconnected lines of research will be pursued in the study of X-ray transforms and related integral-geometric inverse problems. Three distinct complex-analytic and complex-geometric methods that have separately produced reconstruction formulas and range characterizations for X-ray transforms over the past three decades, including the recently introduced notion of transport twistor space, will be unified and cross-pollinated. This unification is expected to extend existing results from Euclidean to Riemannian and other non-Euclidean geometries, and to yield new exact reconstruction formulas and sharper characterizations of the attainable data in partial-data problems. A second line of research will continue a program on tensor tomography — the reconstruction of tensor fields, rather than scalar functions, from their weighted geodesic X-ray transforms — extending prior explicit, constructive solutions in Euclidean and hyperbolic geometry to surfaces of non-constant curvature and to non-simple geometries admitting conjugate points, with initial extensions to three-dimensional settings. Techniques from microlocal analysis, partial differential equations and fiberwise Fourier analysis on the unit tangent bundle, complex geometry, and functional analysis will be employed throughout, and theoretical results will be supplemented by proof-of-concept numerical implementations to assess practical feasibility.